Effective Utilization of Chemical Instrumentation in Undergraduate Instruction: A Regional Approach

This project is continuing and expanding an effort, begun several years ago, to provide maintenance and repair service for chemical instrumentation at undergraduate institutions in the southeast. The service is provided by trained electronic personnel working from a mobile van outfitted as an electronics shop, and includes repair, maintenance, calibration, and consultative instruction among the offerings available. In the history of operation to date, 84 undergraduate institutions in Alabama, Florida, Georgia, North Carolina, South Carolina and Tennessee have been involved and over 3000 instruments have been serviced and calibrated. It is anticipated that 50 colleges and universities and over 5000 students will be affected each year by this project. Institutions served include a number of colleges for minorities and women.